Recent Trends and Advances in PDEs and Numerical PDEs

9804748 Gunzburger This award provides support for a conference in "Recent Trends and Advances in PDEs and Numerical PDEs" to be held at Iowa State University between August 2-5, 1998 (dates to be confirmed). Partial differential equations (PDEs) is the language of much of science and engineering so that advances in PDEs and their approximate solution are of continuing importance to applications. The general themes of the conference are recent advances and trends in the theory and computation of PDEs, focusing on nonlinear models, algorithms, and theoretical and computational results that are of importance in applications. Interdisciplinary cross-fertilizations will be featured. This aspect of the conference will especially benefit junior mathematicians who will be exposed to the great variety of approaches and models that the general PDE community has developed. A distinguished list of speakers will be invited to the conference; there will also be ample time reserved for young researchers to present their results. The featured speaker at the conference will be Professor Olga Ladyzhenskaya of the Steklov Institute in St. Petersburg, Russia. A discussion, led by notable researchers, about the important trends that have been recently established and problems that the PDE community should be addressing will take place. The conference should be especially attractive to minorities and women. Speakers from these groups, including the featured speaker, will be prominent at the conference and help will be provided to junior participants representing these groups for their expenses.